Inverse Problems for Electrical Networks -REU Site

An electrical network consisting only of resistors has a definite current response to voltages applied at designated terminals. The current response at these designated terminals can be measured once the voltages are applied. The inverse problems that will be studied are those in which the response is known and the resistances and/or topology of the network are not known but desired. Planar and non-planar networks will be studied. In addition, similar problems involving directed networks and the Schrodinger equation will be studied. Relations to continuous inverse problems and infinite networks will be investigated. Eight undergraduates per summer will work on these problems.